Acquisition of Equipment to Establish a Paleomagnetic and Rock Magnetic Laboratory at New Mexico Highlands University

0820853
Petronis

Funds from this Major Research Instrumentation (MRI) Program grant will support acquisition of equipment for paleomagnetic and rock magnetic research and research training at New Mexico Highlands University (NMHU). NMHU is a non-Ph.D. granting, Hispanic serving institution. Specific equipment to be acquired includes: 1) a spinner magnetometer; 2) alternating field demagnetizer; 3) fluxgate magnetometer; and 5) Kappabridge (for the measurement of anisotropy of magnetic susceptibility). The equipment will support a broad range of interesting research including study of emplacement mechanisms of igneous intrusives and mid-crustal metamorphic processes. These research directions demonstrate a need for analysis of rock magnetic fabrics. The equipment will facilitate student experience with state-of-the-art analytical techniques in rock and mineral magnetism.

***